Problem Solving with Computers

9452665 Eaton The Northeast Louisiana University seeks to initiate a three-week, residential, Young Scholars Project in computer science for 30 students entering grades 8 and 9. The project will introduce students to the fundamental concepts of computer science. Students will be provided the opportunity to participate in group research projects, hands-on experience with topics such as graphics, robotics telecommunications, and database. Additional experiences include career awareness activities and field trips to various industrial sites to interact with scientists in their working environment.